Insight II: Investigative Stimuli for Intuitive Growth Using High Technology

This project seeks to identify aspects critical to the design of computer simulations for teaching sophisticated physical concepts to students in introductory physics classes. The progression from pedagogically simple systems to complex systems that more closely model nature requires that students come to believe that equations represent reality. Graphical representations show promise in being the best way to connect physical systems and the equations that describe them. Allowing students to build many of their own graphical representations serves to validate simulations as models of nature, aid student discussion, and alter student misconceptions. We will draw on representations and analogies that scientists find particularly fruitful, but are not currently included in introductory physics courses. We plan to investigate the potential of new graphical tools such as three-dimensional displays and manipulations, alternative input devices, and video storage devices for displaying physical systems which students can model.